Automated Data Acquisition and Control of AC and DC MachinesLaboratory

This project modernizes the content of several courses in Engineering Technology. Specifically affected are the AC and DC Machines sequence and the Process Controls Course. The objective is to expose students to modern state of the art methods and equipment for performing data acquisition and control functions. The project equipment includes two complete data acquisition and control systems that interface with previously owned equipment and consists of two personal computers with data acquisition and control software, variable frequency drives, and other miscellaneous interfacing hardware. These make possible new laboratory experiences that significantly enhance the education of both associate degree and bachelors degree graduates in electrical engineering technology. The award is being matched by an equal amount from the principal investigator's institution.